Conference: 15th Panhellenic Logic Symposium (PLS 2026)

The 15th Panhellenic Logic Symposium (PLS 2026) will take place on July 6–10, 2026, at the National and Kapodistrian University of Athens, Greece. PLS is a long-standing biennial international conference, established in 1997, that brings together researchers working across the full spectrum of logic, including mathematical logic, philosophical logic, and logic in computer science. The symposium provides a forum for disseminating foundational advances, fostering collaboration across subfields, and supporting the professional development of students and early-career researchers. PLS 2026 is particularly timely as it coincides with the launch of a new MSc program in Logic at the University of Athens, creating a unique opportunity to strengthen connections between U.S. researchers and an emerging international center for logic education and research. Over the years, PLS has fostered numerous transatlantic collaborations, and the 2026 edition is designed to expand this role by deepening U.S. engagement in shaping research and training connections with an emerging international hub for logic.

PLS 2026 is expected to host approximately 20 invited speakers and 100 participants. The scientific program will include two tutorials by leading figures in mathematical logic, six plenary lectures, four thematic special sessions, contributed talks selected through peer review, and a poster session for early-career researchers. The meeting will cover core areas of contemporary logic, including mathematical logic, philosophical logic, and logic in computer science. Special sessions will address topics such as the axiom of choice, logics for formal verification, modal logic, and Aristotelian syllogistics, alongside invited and contributed talks in set theory, model theory, and related areas. A distinctive feature of PLS 2026 is the introduction of preparatory tutorials for advanced undergraduate and early-stage graduate students, designed to provide background and context for the main program.

Further information about the conference is available at http://panhellenic-logic-symposium.org/15/